The Integration of Economic Principles with Design in the Engineering Science Component of the Undergraduate Curriculum

This project demonstrates how the design activity, fully integrated with economic principles, can be effectively utilized to teach the engineering science component of the undergraduate curriculum. The project builds on and extends the experimental core curriculum being developed at Texas A&M University (under NSF funding) such that design and economic principles become infused into required engineering science courses in the curriculum at the Georgia Institute of Technology. Professors from four engineering disciplines at Georgia Tech will be developing and testing the experimental courses over several years and reporting their experiences with a design-focused teaching paradigm. Additionally, a new course is being developed focusing on the economics of engineering design that bridges from the lower to the upper division in the undergraduate curriculum. Professors from six different universities are assisting in the preparation of educational materials for this new course and for the economics components of the modified engineering science core courses. To provide a second experimental test bed for this course, Virginia Polytechnic Institute and State University and North Carolina A&T State University will teach it during the second and third years, and the third year, respectively, of the project. Evaluation procedures for the modified engineering science core courses at Georgia Tech and for the economics of design course are being developed and carried out over the duration of the research. Effective mechanisms for transferring results are planned to be developed. Significant support exists for this multidisciplinary effort as evidenced by the fact that one- third of the entire budget is being cost-shared by participating institutions. Finally, a National Visiting Committee is being formed to interact with the project.